A Senior Design Project Laboratory: Experiments in Parallel Processing

Parallel processing as a subject has already been introduced in the CSE curriculum by an Honors program in Parallel Processing. Through this ILI program, we introduce an instructional plan to make the subject available to all CSE majors in order to prepare them for large-scale, meaningful parallel processing projects in the Senior Design Project courses. This plan includes: introducing an applied parallel processing topics course, covering parallel processing as a subject in the Senior Design Project courses, and making the proposed equipment available to undergraduate courses for programming exercises. In addition, several new industry-sponsored, parallel processing student projects will be introduced in the Senior Design Project course sequence.One of the goals of the Senior Design Project course sequence is to provide real-life industry-like experiences for our undergraduate students through industry-sponsored projects. Because of the interest of local industries in the proposed ILI program, a major portion of the institutional matching funds has been provided by contributions (contingent on this NSF grant) from E-Systems and Mercury Computer Systems. Thus, this project will provide a unique opportunity for us to achieve our goals through the cooperation and contributions of the NSF, UTA, and industry.